Minority Recruitment Outreach Demonstration Project

Penn State's College of Earth and Mineral Sciences is involved in a major effort aimed at increasing the participation of minorities, notably blacks, in the earth-related mineral, materials and geoscientific fields. In particular, black participation in fields such as geology, petroleum engineering, meteorology, geophysics, ceramic engineering, metals engineering, and mining engineering has been low historically and presently remains so. The College has developed a close working relationship with two Pittsburgh schools serving substantial numbers of minorities, George Westinghouse High School and Perry Traditional Academy, and with the Westinghouse Corporation which has provided joint support for previous activities involving research experiences for minority students on the Penn State campus. This Model Project is designed to further the full implementation of these cooperative efforts by expanding both the range of opportunities available and the numbers of students impacted by the Penn State initiatives directed at research and other motivational experiences for minority students. Under the auspices of the College of Earth and Mineral Sciences (EMS), fifty junior and senior high school minority students are involved in research projects in geosciences and mineral engineering under the supervision of EMS research scientists. The projects are conducted at on-campus sites and at the Wallops Island, Virginia, Marine Science Consortium facility. Primary objectives are: to create an atmosphere which will stimulate students to think creatively; for students to develop an appreciation for the various approaches which can be brought to bear on problems in science and engineering; to impress upon students not only the interdisciplinary nature of many problems, but the need for cooperation to solve them; for students to experience the thrill of discovery and the satisfaction of formulating solutions. These objectives will be achieved through two sequential activities for the students: a one-week orientation and introduction to research, held on the Penn State Campus and supported by the Westinghouse Corporation, followed by a two-week research experience either on campus or at the facilities of the Marine Science Consortium at Wallops Island, Virginia, of which Penn State is a full member. Research topics for the on-campus activities include Petroleum Recovery: Technology of Drilling Oil/Gas Wells and Producing Petroleum from the Earth, and Technological Approaches to Environmental Issues Associated with Coal Production and Utilization. Field research at Wallops Island will center around studies of the biological and physical processes controlling the geochemistry of Chincoteague Bay. This is a noteworthy project, especially in its focus on the earth and mineral sciences, in which minorities are particularly underrepresented. Significant joint support is being provided by the Westinghouse Corporation.